Mathematical Modeling of Electro-Elastocapillary Systems

Pelesko
0807546

In this project, the investigator, his colleagues, and a
team of undergraduate researchers study electrocapillary surfaces
and electro-elastocapillary systems. Electrocapillary surfaces
are capillary surfaces, i.e., surfaces which minimize surface
energy subjected to a volume constraint, that are placed in an
electric field. Electro-elastocapillary systems are
electrocapillary surfaces that are additionally constrained to
reside on a flexible elastic body. Mathematical models of these
systems are developed via a variational principle. The resulting
systems of coupled nonlinear partial differential equations are
studied using tools from perturbation theory, nonlinear dynamics,
and numerical analysis. In addition, experiments are carried out
in the investigator's laboratory and the mathematical theory is
compared with experimental data.

Microelectromechanical systems (MEMS) operate at a scale
where forces common to everyday experience, such as gravity and
inertia, hold no sway. Rather, in the microworld, behavior is
dominated by less familiar forces such as surface tension and the
electrostatic force. Inspired and informed by recent advances in
MEMS technology, this project develops the mathematical theory of
systems dominated by the unique balance of capillary,
electrostatic, and elastic forces. The development and analysis
of this mathematical theory allows MEMS researchers to improve
and optimize the design of MEMS devices. In turn, improved MEMS
devices can be used in areas ranging from automotive safety to
biomedical engineering. This project also focuses on outreach to
mathematics faculty and students from local high schools. As
part of this project, the investigator strengthens existing ties
with several local high schools and help develop novel lab-based
exercises to be integrated into the high school mathematics
curriculum.